Undergraduate Human-Computer Interaction Laboratory

The proposal will establish a model computer laboratory for undergraduate computer science students to develop graphical user interface applications and explore advanced graphics rendering algorithms. User interface students will develop interactive teaching tools as a team project for a capstone course. Computer graphics students will develop animations and distributed rendering algorithms. The laboratory will contain twelve Pentium machines with two operating systems: Windows NT and Linux. The machines will be configured in a high speed local area network to support interactive client-server and distributed applications. Software will include Windows development environments, Linux, and graphics libraries. All teaching materials developed for this project will be disseminated widely.